Peninsula College Alternative Fuels Certificate Program

The project addresses the need for Alternative Fuel Vehicles (AFV) professional technical education by applying National Automotive Technicians Education Foundation standards for Alternative Fuel and Hybrid Vehicles. The project adapts best practices in AFV curriculum to address regional needs; and provides the incumbent automotive workforce, emergency responders and automotive educators with First Responder Safety Training for AFV.
The 45-credit AFV certificate serves the needs of rural communities in which employers range from small independent automotive service businesses to multiple manufacturer specific services. By combining onsite and online teaching and learning this project meets the needs of time and place bound students and incumbent workers. Faculty members from multiple disciplines collaborate to identify and demonstrate science and mathematical themes and concepts necessary to understanding AFV technologies. The project incorporates the Integrated Basis Education Skills Training model in which Adult Basic Education and discipline specific faculty work together to ensure that students are equipped for the rigors of an advanced certificate program.